DOE/NSF Scientist/Student/Teacher Enhancement Program

ABSTRACT Squires 97-31234 During the three years of this project teachers and students from six Washington State high schools will work on research projects at Pacific National Laboratory (PNL). Each year one teacher and three students from each school will work together with a scientist at PNL for 8 weeks. This working partnership will continue during the academic year in a research course which each district has committed to and with ongoing support of the scientist mentor. In the senior level research course the teacher-student teams will mentor other students. Teachers will participate for two years each. Students in the eleventh grade will participate in the 8-week summer research experience once. During the second year of the project another teacher from the same school but from a different discipline will begin their participation along with their team of three students. The six school represent a blend of 4-school districts near PNL, one district 70 miles away, and the sixth district is 240 miles away. Over the life of the project 12 teachers and 72 students will participate